The Dynamics of Coastal Fronts and Jets

The role of coastal upwelling fronts and jets in general coastal circulation will be examined through numerical experiments on a supercomputer using a primitive-equation, three-dimensional, time-dependent numerical model. Potentially, cross-shelf exchange may be inhibited or enhanced in the presence of fronts and this project will lead to insight about the conditions that favor each process. Additionally the time scales for various mesoscale frontal features will be described.